CAREER: Seismic Protection of Structures With Semi-Active Dampers

9623811 Makris Semi-active dampers are receiving considerable attention for seismic protection applications, including such devices ranging from hydraulic dampers to electrorheological (ER) fluid dampers. The implementation of semi-active dampers in real structures is challenged by a number of fundamental research problems such as:a) Salability b) The required dynamic range c) Control models and algorithms; d) Viscous heating and temperature dependent effects. In this project a systematic effort is made to investigate the forementioned issues is proposed. Specifically: The hysteretic unique property of electrorheological dampers to develop a combination of hysteric and viscous forces will be further exploited to develop a practical solution to protection of structures from earthquakes. The entire project is based on a coordinated interdisciplinary effort with strong industrial support and collaboration. A comprehensive education program will move forward together with the research project to involve students in their class work, laboratory testings, and analytical investigations. This is a FY96 Career award. ***